Mathematical Sciences: Algebraic Topology of Algebraic Varieties, Conformal Field Theory

9625768 Beilinson The project deals with a geometric version of Langlands' correspondence in which the role of automorphic forms is played by D-modules on the moduli space of principal bundles on a complex curve, and that of Galois representations, by the local systems on the curve. It appears that the theory of chiral algebras provides a powerful method for constructing the 'automorphic forms' corresponding to the 'Galois representations,' which may eventually lead to complete understanding of the Langlands conjectures in the geometric situation. The Langlands conjectures appear to be among the deepest visions of modern number theory; at the moment there seems to be no clue to understanding them in full generality. However, the parallel statements in the geometric situation (technically, with the number field replaced by the field of rational functions on a complex curve) seem to be much more manageable, because of the machinery of chiral algebras (originated in mathematical physics). These parallel statements are to be addressed in this project. ***